Reducing Intractability of Differential and Integral Equations

This project will continue research on the computational complexity of differential and integral equations. Past experience in this area has shown that standard formulations of these problems are often intractable. A goal of this project is to develop new formulations of these problems that are still practical, but may lead to tractable problems. These formulations will be based on the information-based complexity theory.